Haptic Information Processing

This action is to allow the investigator, Dr. Joaquin Fuster, to purchase computer equipment to support an innovative focus of his research. The overall objective of his research is to gain understanding of the neural foundation of perception and memory. It is designed to provide new data concerning the processes by which the brain of the primate encodes, retains, and utilizes information acquired by active touch. The principal and most innovative aspects of this research is the in-depth computational analysis of temporal patterns of neuron discharge during haptic discrimination and short-term memory. This work is important because it builds on previous models of memory and pushes it to the cutting edge by the addition of computational methodology.